Mathematical Sciences: Calibrations and Calibrated Surfaces:Beyond the Angle Criterion

Dana Nance will continue his studies of calibrations and their impact on area minimization. This research is also strongly related to the investigation of faces of the Grassmannian. Calibrations have been studied from two related points of view. First because they afford a quick method of showing that a certain surface is area minimizing. The second is related to the first and involves faces of the Grassmannian, these contain the tangent planes to the area minimizing surface. Nances's recent work on the angle conjecture involved his introduction of quaternionic forms which are an extension of the special Lagrangian forms. Following this success he will study their further properties and extensions.